Identifying Linear and Nonlinear Mechanical Properties of Physiological Systems at Low Frequencies

9309426 Lutchen The goal of this study is to develop a unified approach for applying linear and nonlinear systems identification techniques to study physiological systems at low frequencies. Nonlinear procedures, including kernel and block structure identification techniques, will be used. The investigators will also develop statistical and sensitivity analyses procedures to determine the reliability of the approaches. The proposed study is an extension of the previously supported research that found limitations in use of standard ventilator waveforms for studying the respiratory system. This research is important in order to advance the understanding of nonlinear systems that operate at low frequencies; namely, the respiratory and the cardiovascular systems. The research could potentially lead to the development of noninvasive methods to evaluate the mechanics of respiration of ventilator dependent patients. ***